Modernizing an Undergraduate Synoptic Meteorology Laboratory

Lyndon State College will acquire modern computer work stations that analyze and display real-time weather data--radiosonde sounding, weather maps, and satellite pictures--for classroom instruction, operational forecasting and student projects. EAch work station will consist of an IBM PC/AT personal computer, high resolution EGA color monitor, and appropriate computer upgrades (e.g. memory expansion, color graphics card, etc.), which will be consistent with meteorological data supplied by the University Corporation for Atmospheric Research through its Unidata program. These work stations will familiarize students with modern equipment and greatly improve their three-dimensional perception of atmospheric conditions. They will thus improve undergraduate education in meteorology, as well as weather data dissemination to the local community.